MP/PPD: Girls With Disabilities Get SMART

9450252 Rousso Girls Incorporated, a national youth-serving organization, is undertaking a three year project to modify its highly successful Operation SMART program, designed to address the underrepresenta- tion of girls and women in science and mathematics, so that it is accessible to girls and young women with diverse disabilities. Recognizing that girls with disabilities face a double set of barriers based on disability and gender to mathematics and science experiences, courses and careers, the overall project goals is to provide girls with disabilities with access to needed skills, attitudes, and opportunities so that they will choose and can persist in science and mathematics courses in school, and pursue mathematics and science careers and interests in adult life. A secondary goal is to provide nondisabled girls with further encouragement for scientific pursuits through exposure to an enriched curriculum and a mainstreamed learning environment. The project objectives are to: Develop basic principles for incorporating the needs and experiences of girls with diverse disabilities into science and mathematics curricula; Revise the materials and manuals of Operation SMART so they are inclusive of girls with disabilities; Assist other science and mathematics programs and curricula to become inclusive of girls with disabilities. Through field testing in several sites throughout the country, and consultation with experts in the field, the project is developing a science curriculum on a specific set of topics from the ground up to understand the basic principles of inclusion as it relates to science, and the contributions of the experience of disability to scientific exploration and learning. These principles will then be used to alter existing SMART curricula and materials, and have significant input into materials now in process so that they are truly inclusive, with the needs and experience of girls with disabilities being thoroug hly integrated into the work rather than an add-on. Finally, the project will generalize from the process of revising SMART to develop guidelines for modifying other science and mathematics curricula so they can be used in mainstreamed settings. Several products will be developed through this project including a new curriculum, a set of modified SMART materials, a set of guidelines for inclusion, and an annotated bibliography on inclusive mathematics and science curricula. These will be broadly disseminated using the extensive Girls Incorporated networks.